Molecular and Biological Engineering of Plant-derived Antibodies

9977816
OWENS

This award provides funding to support collaborative research between investigators at the University of Arkansas for Medical Sciences, Little Rock and the University of Arkansas, Fayetteville. This is highly venturesome research with the goal of incorporating into plants the genetic capability to produce antibodies to phencyclidine, a substance better known in drug abuse circles as PCP. Efforts will first be made with Arabidopsis thaliana, a plant commonly used in laboratory experimentation. If the capacity to produce and store large amounts of antibody can be introduced into this first plant, then the long-range goal of transferring this technology to an agronomic crop like soybeans will be attempted. This project has the potential to result in both a cheap way of producing large amounts of antibody for use in drug abuse treatment and a possible new highly lucrative crop to revitalize agriculture in Arkansas.